Collaborative NSF/ASEE Poster Sessions

This project provides a highly visible dissemination outlet for engineering grant holders in the Course, Curriculum, and Laboratory Improvement (CCLI) and Advanced Technological Education (ATE) Programs. The PI organizes a poster session at the American Society for Engineering Education's (ASEE) Annual Conference in 2006, 2007, and 2008. He invites PIs with engineering education grants to submit an abstract for inclusion in the poster session.